Purchase of A Departmental Stopped-Flow Equipped Circular Dichroism Spectrometer

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of Illinois in Chicago will acquire a Stopped-Flow Equipped Circular Dichroism Spectrometer. This equipment will enhance research in a number of areas including a) studies on folding kinetics of designed peptides that form beta sheets in solution; b) fast folding events in secondary and tertiary structure formation of RNA; c) studies of sequence dependent context effects in duplex DNA; d) chemical biology studies of novel protease mechanisms; and e) protein and peptide folding and conformational studies.

Circular dichroism spectroscopy is an extremely useful tool in modern analytical chemistry. It provides a very reliable and sensitive method for assigning absolute molecular configurations. The results from these studies will have an impact in a number of areas, especially biochemistry.